Leadership Program in Life, Earth and Space Sciences for K-6 Teachers and Principals

This project is designed to improve the quality and the quantity of science taught in K-6 classrooms of Calcasieu Parish in Louisiana. The three major components of the project are (1) two semester long workshops in the life sciences, earth and space sciences, (2) the provision of the methodology and motivation for these workshop participants to share their expertise with their peers, and (3) the development of a model by which a local school system can inservice their teachers. Both appropriately selected teachers and their principals will be involved in this three-year long effort. Teacher teams and teacher-principal teams are chosen from among the 36 schools in the parish. Each workshop is heavily experiential, inquiry oriented and offers 6 hours of graduate credit for the teachers. The objectives are to update and broaden the knowledge of life, earth and space science for 32 K-6 teachers and their principals and to provide the teachers with the methodology and motivation to improve the science instruction in their classrooms. These same 32 teachers have been involved with a previous project in which their knowledge base in the physical sciences, physics and chemistry, has been enhanced. By sequencing this grant with the previous one, these elementary teachers should be adequately prepared to effectively teach all of the sciences to their students. They will also have been involved over a period of several years which should give them an appropriate background to become the lead teachers in their schools. By including the principals in the content portion of the project as well as the leadership component, strong and understanding administrative support for enhancing science instruction should be forthcoming. Four full and five half-day inservice days are built into the school year calendar to implement this peer enhancement. Expert teachers as well as university staff will be involved in the instruction. McNeese State University and the Calcasieu Parish Public Schools have contributed an amount equivalent to 50% of the NSF request. This is a strong commitment on the part of the schools and the university and bodes well for continued implementation of science education improvement in the classrooms.